Mathematical Sciences: A Research Briefing on :The Role of the Mathematical Sciences in the High Performance Computing and Communications Program

This project supports a workshop by the National Academy of Sciences to develop a research briefing and a paper on the role of the mathematical sciences in high performance computing and computation. The briefing paper will be used in planning at the National Science Foundation and will be distributed to other federal agencies that support research in the mathematical sciences and high performance computing. The project has particular promise for identifying research opportunities and research topics in the mathematical sciences that require emphasis in order that the High Performance Computing and Communications program outlined by the Federal Coordinating Council for Science, Engineering, and Technology reach its full potential.